Effects of Air Pollutants on the Deterioration of Marble

Research will be conducted on the deterioration of marble when subjected to sulfurous and nitrogenous atmospheric pollutants, both categories of which are produced by combustion of fossil fuels. This research is likely to lead to a better understanding than now exists of the role played by air pollutants in accelerating the deterioration of structures and may also lead to approaches which may be used in engineering design for minimizing the effects of pollutants on environmental quality.